Phylogeny of Flea Beetles: Testing 3 Hypotheses of Relatedness Using 3 Different Data Sets: Larval and Adult Morphology and DNA Sequence Data

This study will produce a phylogeny (family tree) of the 38 flea beetle
supra-generic groups and 5 galerucine tribes, which will test three
proposed hypotheses of relationships, between the flea beetles and the
galerucinae using a comprehensive taxon set and an exhaustive character set
from adult and larval morphology and 3 gene fragments from the
mitochondrial, nuclear and ribosomal genomes. This phylogeny will also be
used to test hypotheses of evolution of jumping behavior, evolution of host-
plant choice, Biogeography and geologic age of the flea beetles, and
evolution of larval leaf feeding which are of general scientific interest.

The flea beetles (Chrysomelidae: Alticinae) together with their sister
group, the Galerucinae, are a huge group containing over 12,000 species;
they are also extremely damaging to agriculture. The flea beetles are
renowned for making "shot holes" in table crops such as potato, broccoli and
grapes. The galerucines are infamous for the multi-billion dollar damage to
corn and beans. Unfortunately, the taxonomic status of the flea beetles is
so confusing that it impedes proper research and pest management. Over 500
described genera of flea beetles are divided into 38 supra-generic tribes,
sub-tribes and sections and there is no taxonomic or phylogenetic hypothesis
of how these tribes and series are related to one another. This lack of a
trust -worthy phylogeny is especially important to pest management, where
assumptions about pesticide applications or search for biological control
agents are often made based on taxonomic position and where money is often
wasted if these assumptions are incorrect.